Energy- and Angle-Resolved Photoelectron Spectroscopy (Physics)

A detailed study of the angular distrbutions of photoelectrons following two-step laser ionization of molecular systems will be made. Both direct ionization and autoionization via an intermediate state will be studied. An important aspect of the work is that the angle between the polarization vectors of the lasers may be varied, and theory predicts that when these are not parallel there will be a breakdown of cylindrical symmetry, which may be verified by this type of measurement. During the later stages of the work the polarization of the ejected electrons as well as their angular distribution will be measured.